A Comparison of Numerical Methods for the Hele-Shaw Equations

This is a Minority Research Inititation (MRI) Planning Grant to develop new numerical techniques to study the velocity field in the interface between two fluids. Small disturbances that occur when one fluid displaces another fluid in a porous medium will receive special attention. These disturbances cause the interface to be stable or unstable. Usually, these interfaces are three-dimensional and difficult to study both experimentally and numerically. The proposer will use a code which appears to handle problems of this nature. The planning grant will provide support for a well-trained minority mathematician to prepare a competitive proposal to submit to the MRI research initiation component.